Mathematical Sciences: Loop Space Analysis

Driver will study differential and integral calculus on path and loop spaces of compact Riemannian manifolds. The long term goal is to develop Malliavin calculus, Hodge and index type theorems for Wiener spaces of paths and loops on curved manifolds. The specific problems include constructing path and loop space valued Brownian motions by stochastic development using two-parameter stochastic calculus, and investigating the existence of log-Sobolev inequalities for different path and loop space measures. The project involves loop spaces. In the special case of two dimensional manifold, the loop space is just the family of all continuous closed paths on a surface which start at some fixed point. One key idea is to construct a measure on these paths so that one can talk about the "volume" of a set of paths and thus integrate over the loop space. This is important for understanding the topology of loop spaces and has implications for string theory in physics.